Fourth World Congress -- Tall Buildings: 2000 and Beyond

This award will support the activities of the American Council on Tall Buildings and Urban Habitat Headquartered at Lehigh University. The organization is cooperating with a counterpart organization in Hong Kong to sponsor the Fourth World Congress on Tall Buildings - 2000 and Beyond.